Development of a Field Course in Aquatic Ecology at the Reis Biological Station: ILI Award

This award provides funds to The Reis Biological Station of St. Louis University to acquire equipment for the development of a quantitative-based field course in aquatic biology. The equipment to be purchased includes an aluminum jon boat, water sampling equipment, plankton sampling equipment, dissolved oxygen meter, portable oxygen meter, portable water analysis kit, current velocity meter, stereozoom and compound microscopes, and a color video system for the dissecting and compound microscopes. This equipment will be used to interrelate the physical and chemical characteristic of various Ozark aquatic habitats with their respective biological communities. In addition to the 75 aquatic ecology students to be served over a five-year period, the equipment will also be used by other classes utilizing the Reis Biological Station. Thus, the equipment will impact on approximately 675 students over the next five years. The grantee is matching this award with non-Federal sources.